Research on Cache Memories

Memory hierarchy performance, and cache memory performance in particular, is the limiting factor in most or all modern computers. The machine cycle time is usually limited by the cache access time. Cache misses and slow main-memory access times significantly increase mean instruction execution time. Shared bus multiprocessor designs are limited in overall performance by bus bandwidth, and bus traffic declines with cache effectiveness. Finally, multiprocessing in an environment with caches requires a mechanism to maintain memory consistency. This research is focusing on a number of the following topics: (1) develop and evaluate hardware-based cache consistency algorithms, and extend their utility beyond common bus design; (2) develop and evaluate efficient algorithms for trace-driven simulation ıbeyond those already known!; (3) quantify the effect of cache parameter selection; (4) investigate the design and use of caches in a vector processor; (5) study the effect of bus design ıin particular, the IEEE Futurebus design! and its proper use to maximize performance; (6) further develop and evaluate software-based cache consistency algorithms; (7) investigate the feasibility of virtually addressed cache designs in realistic systems; (8) evaluate cache performance via hardware measurement; (9) further characterize program behavior and cache workloads; (10) develop and evaluate better cache prefetch algorithms; (11) examine possible optimizations for caches or ROMs with unchanging code ıe.g. microcode caches!; (12) evaluate the utility and design of instruction buffers in systems which may also have instruction caches; (13) evaluate the utility of multilevel caches as a function of technology; (14) look at the most appropriate designs for cache controller chips; and (15) study TLB design. This project focuses on a number of problems contributing to the limitation of the performance of high-speed computers. Results will contribute to the alleviation of some of the bottlenecks.